Development of Undergraduate Curriculum in Groundwater Hydrology: Experimental Investigation and Computer Simulation

The Groundwater Hydrology project will establish a model laboratory component to undergraduate hydrology courses in which basic principles of fluid flow and contaminant transport in porous media are presented. In addition to receiving classroom instruction, students will quantify and observe fundamental flow and solute transport processes in both the laboratory and field. Students will also participate in the numerical simulation of these processes. Flow-through porous media apparatuses will be constructed for a variety of flow geometries. Experiments will be instrumented with pressure transducers and specific ion electrodes. Students will investigate Darcian flow, aquifer field tests and solute transport in homogeneous and heterogeneous porous media. A computer data acquisition system will allow for simultaneous readings and data storage. A high-speed microcomputer will allow rapid graphical representation of data and numerical simulation experiments. The project is unique in that engineering hydrology at the undergraduate level has traditionally incorporated analytical- based laboratory exercises. This state-of-the-art groundwater hydrology course will serve as a model for engineering programs. Undergraduates seeking degrees in the areas of water resources, environmental and geotechnical engineering will have a unique opportunity to experience laboratory and field experimentation combined with numerical simulation of flow and transport processes in the subsurface.